Implications of Evolutionary Game Theory

Project Abstract Economists commonly use game theory to model strategic interactions between buyers and sellers, firms and unions, presidents and parliaments, competing firms, and competing countries. However, little connection has been made between the increasingly sophisticated and contending theories of such games and actual behavior in these situations, limiting the applicability of game theory. Recent advances in experimental methods have made available new possibilities for testing theoretical models. The proposed research will bridge the gap between theoretical games and behavioral applications. Models of games will be developed that are more firmly grounded in theories of individual behavior. The models will then be used to derive testable implications. These in turn will provide the foundations for an experimental investigation of the models and the applications to specific economic questions.